Sheldon Jackson College TCUP Planning Grant

ABSTRACT

Title: Sheldon Jackson College TCUP planning grant

The purpose of this planning grant is to assess Sheldon Jackson College.s (SJC.s)
current STEM curriculum and infrastructure and to develop an institutional action plan to
be used as the basis for a full TCUP implementation grant to be submitted February 2005.
SJC is a 4-year liberal arts college, accredited by the Northwest Association of Schools
and Colleges and Universities, offering associate and bachelor degrees in Business
Administration, Elementary Education, Human Services, Outdoor Leadership,
Individualized Studies, Secondary Education and Environmental Science. SJC is
committed to its founding mission to serve the needs of all students, with an emphasis on
Alaska Natives and students from rural communities. SJC needs to evaluate its current
STEM program to determine the effectiveness of its STEM instructional program in
preparing students for success throughout their education and careers.

SJC requires 12 months and 2 phases for STEM program assessment:
* Phase 1 (October 1, 2003 . June 1, 2004): assessment and evaluation of
current STEM infrastructure and offerings.
* Phase 2 (June 1, 2004 . October 1, 2004): creation of an institutional plan
to increase enrollment and retention in STEM programs and development
of full TCUP proposal.

At the end of the 12 months SJC will have conducted an assessment of its current
STEM course offerings, evaluated the effectiveness of current teaching practices,
developed an institutional plan to increase and retain students in STEM courses, written a
full TCUP implementation grant, and created an assessment system to further evaluate
STEM course effectiveness for SJC.s unique student body.